Research in Undergraduate Institutions: Closed-Form High- Frequency and Low-Frequency Solutions for Electromagnetic Waves through a Frequency Selective Surface

The investigation of electromagnetic transmission through and around structures has been a classical area of research recently invigorated by the availability of computational resources combined with the pressures on designers to incorporate this knowledge into structural transmission through a frequency selective surface (FSS). The method being employed is the mode-matching technique, standard, rigorous method for analyzing periodic structures. The specific apertures of interest in the FSS are rectangle, circle, polygon, cross, and Jerusalem-cross. Enhanced physical understanding should provide design information for specific engineering problems, such as antenna radomes, microwave reflectors, laser mirrors, solar filters, artificial dielectrics, and advanced composite materials.